The Southern Biomedical Engineering Conference and The Web- A Model for Disseminating Conference Information, April 4-6,1997

9706177 Bumgardner This award provides partial support for the Southern Biomedical Engineering Conference, April 4-6, 1997, to acquire, install, and begin the operation of a computer server connected to the World Wide Web, a part of the Internet. The server would give access to the audio and visual displays of the plenary presentations and the abstracts of the scientific papers read at the meeting. The system is to be linked to other biomedical engineering programs and resources such as BMEnet. The conference proceedings thereby would be made available world wide at no cost to the user. The system will be used by the organizers of future Southern Biomedical Engineering Conferences for program planning and post-conference information dissemination. System maintenance will be managed by the Agricultural and Biological Engineering Department of Mississippi State University. ***